Mathematical Sciences: The Arithmetic and Analysis of Automorphic Forms

This research is divided into three parts. The first part concerns automorphic forms that arise as determinants of elliptic operators on certain manifolds. Ways of obtaining GL(n) analogs of theta and other elliptic functions which are of arithmetic interest will be studied. Also studied will be symplectic automorphic forms recently discovered in mathematical physics as well as Selberg zeta functions in higher rank spaces. In the second part, the existence problem of cusp forms for co-finite subgroups of SL(2,R) with special emphasis on the family of Hecke groups will be studied. In this area a conjectural spectral theoretic characterization of arithmetic groups as well as a criterion that should distinguish congruence and non-congruence subgroups will be investigated. The third part of this research will be devoted to the interplay between cusp forms on GL(n) and Kloosterman sums. Possible connections between certain automorphic objects such as Kloosterman zeta functions and Hecke polynomials and certain infinite sums and products attached to Kloosterman sums in algebraic geometry will be described. This research will concentrate on the theory of automorphic forms. These are complex analytic functions which lead to great insights into number theory. They encode basic number theoretic information, allowing the powerful tools of modern analysis to help solve fundamental problems in number theory. This area is one of the very most important in mathematics today and this young investigator has done much already done much of importance in it. Further important results will surely result from this current grant.